Reactivity Studies of 'Stabilized' Metallacyclobutanes

The chemistry of 1,3-silametallacycles of the early transition metals will be studied in order to increase our understanding of metal-assisted carbon-carbon bond forming reactions and intramolecular rearrangements. Three main areas will be explored: 1) mechanistic studies of carbon monoxide and iso- nitrile insertions and rearrangements, 2) the use of these stabilized metallacyclobutanes to access cationic zirconium complexes for Ziegler-Natta polymerization, and 3) the develop- ment of synthetic organic methodologies based on metallacyclic enolates. Mechanistic, synthetic, structural, and spectroscopic studies will be augmented with molecular orbital calculations. %%% In this project in the Inorganic, Bioinorganic, and Organo- metallic Program of the Chemistry Division, Dr. Jeffrey L. Peterson of West Virginia University will use early transition metals to effect the formation of new carbon-carbon bonds. The results may have relevance to practical methods of forming more complex and useful organic molecules from cheap, simpler molecules such as carbon monoxide.